I-Corps: Translation Potential of a Room-Temperature Fiber Optic Source of Quantum Entangled Photons

This I-Corps project is based on the development of fiber-optic sources of quantum-entangled photons capable of room-temperature operation, addressing a critical gap in quantum communication, sensing, and computing. Current quantum-light sources often require cryogenic cooling, precise free-space alignment, or inefficient coupling between chips, crystals, and telecommunication fibers. These limitations increase cost, size, power demand, and the complexity of packaging and deployment. The primary application for this technology is in telecommunications infrastructure for quantum networking, specifically quantum key distribution and the development of quantum repeaters. In addition, this technology may benefit quantum-sensing companies and quantum-computing hardware manufacturers. This technology may enable lower-cost, more scalable quantum hardware that integrates with existing fiber infrastructure. Applications of this technology include secure communications through quantum channels and biomedical sensing.

This I-Corps project utilizes experiential learning, coupled with first-hand investigation of the industry ecosystem, to assess the translational potential of room-temperature fiber-optic-based quantum light sources. This technology creates quantum states directly within optical fibers, eliminating the need for cryogenic cooling, free-space alignment, chip-to-fiber coupling losses, Raman background noise, and two-photon absorption, which is unlike current quantum-dot, nonlinear-crystal, and silicon-photonic sources. A key capability that differentiates this technology from periodically poled crystals and rigid fiber platforms is tunable phase-matching for flexible quantum-state generation. By providing plug-and-play telecom-band entangled photons compatible with existing fiber infrastructure, this technology may accelerate the deployment of secure networks that protect financial, governmental, and healthcare data against future quantum computing threats.